Monte Carlo Methods for Atoms and Molecules

In this project in the Physical Chemistry Program of the Chemistry Division, calculations will be performed to help increase the understanding of electron interactions within atoms and molecules. As a result of this work it will be possible to calculate certain physical properties of atoms and molecules, such as bond dissociation energies or electronic spectra. Quantum Monte Carlo techniques will be used to compute the ground state energies of molecules and heavy atoms and to study the reaction between molecular hydrogen and fluorine atom. The proposed techniques include both the Green's function and variational Monte Carlo approaches and are expected to yield highly accurate treatments of the electron correlation effects in these systems. Of particular interest is the inclusion of backflow correlations which enables local current conservation conditions to be satisfied.